Engineering Initiation Award: Effects of Curvature, Pressure, Gradient, and Freestream Turbulence on Reynolds Analogy in Transitional Boundary Layer Flow

As much as 50-80 percent of the surface of a typical blade of a gas turbine is covered by flow undergoing transition from the laminar regime to the turbulent regime. The insufficiency of current models for predicting heat transfer at the surface of gas turbine blades can be traced to the present inability to predict the onset of transition and to model the energy transport in a boundary layer undergoing transition. The proposed research will experimentally investigate the effect on transition of the following three parameters: (a) freestream turbulence intensity, (b) surface curvature, and (c) streamwise pressure gradient.